Interdisciplinary Neuroscience Program REU Site

The Interdisciplinary Neuroscience Program at the University of Kentucky was
established to provide a summer (10 week) research opportunity for highly
qualified undergraduates from non-tier 1 institutions interested in
attending graduate school. The program seeks to; 1) provide an interactive
environment where undergraduates are exposed to the many facets of a
graduate career (teaching, learning, research), 2) inform interested
undergraduates of the many possible careers available to them in the
neurosciences, and 3) immerse students in a research project of their own
choosing. Faculty from a wide cross-section of the neurosciences, including
molecular, behavioral and physiological, will offer their expertise to
mentor students in their laboratories and participate in an intensive
neuroscience short course. Students will have many opportunities to
interact both socially and professionally by attending a neuroscience
symposia as well as numerous social events scheduled to enhance
collegiality. By the end of the summer, students who are generally
otherwise unable to experience hands-on neuroscience research, will have
completed their own project, presented it to a professional audience, taken
an intensive neuroscience short course, gained a deeper understanding of the
day-to-day work environment of the neuroscientist, been exposed to the
multitude of career options open to a graduate, and in general become a more
committed future graduate student.